Topological excitations in Bose-Einstein condensates: Existence, stability, dynamics, and interactions

Nonlinear media host a wide variety of localized coherent structures
(solitons, wavetrains, vortices, spirals, etc.) with complex intrinsic
properties and interactions that, in turn, give rise to emergent patterns
with nontrivial dynamics. The theme of the proposed research is a detailed
examination of vortices generated in dispersive nonlinear media.
The main focus is to extend and deepen the understanding of vortex
structures, their existence and dynamical stability as well as their
interactions and mesoscopic lattices in nonlinear media such as
Bose-Einstein condensates and related fields (such as nonlinear optics).
We propose to follow a step-by-step methodology in studying the
generation, stability and dynamics of vortices in a progression of
scenaria of increasing complexity, extending from single vortices,
to few vortices, to vortex lattices. Specifically, we plan to study:
(1) Vortex generation through dynamical instabilities and external
manipulations such as phase imprinting and via instabilities driven by
rapidly moving impurities (focused laser beams).
(2) Dynamics and stability of single vortices (a.k.a. atoms) in the
presence of external traps and manipulation of vortices by translating the
external traps or by using localized optical "tweezers".
(3) Interactions between vortices and formation, stability and dynamics
of vortex dipoles (a.k.a. molecules/dipoles).
(4) Finally, we intend to investigate, by cross-fertilizing ideas from
material science, large arrays of vortices, their crystallization and
structural phase transitions into regular vortex lattices (a.k.a. crystals).

In the 1920's Bose and Einstein predicted that a gas at low density and
ultra-cold temperatures undergoes a transition towards what is nowadays
called a Bose-Einstein condensate (BEC). The most important characteristic
of a BEC is that all atoms occupy the same quantum state creating a macroscopic
lump of coherent matter. BECs are to matter what laser is to light. BECs allow
for direct manipulation and observation of quantum effects at the macroscopic
level, providing ultimate control over matter. Since their recent
experimental realization (for which the 2001 Physics Nobel prize was
granted), BECs have been at the focus of an intensive and ever growing
experimental and theoretical effort. Vortices are fundamental coherent,
topologically charged, nonlinear excitations that emerge in BECs; but
which also play a profound role in exciting and important fields such as
superconductivity and superfluidity (which were the theme of the 2003
Physics Nobel prize). Interestingly enough, they also arise in our daily
life in the form of hydrodynamic vortices in water or in air. There are
strong parallels (as well as differences) between such fluid vortices and
these ultra-cold, superfluid vortices that we plan to examine and
delineate. The outcome of this research will shed light into the pattern
formation and interaction of such vortex structures in Bose-Einstein
condensates. Since the underlying equation that describes the BECs also
describes the behavior of coherent light embedded in a nonlinear
material, the research hereby proposed will also be applicable to
problems of optical waveguides and fiber bundles, photonic crystals, and
light storage in optical traps, all of which are active research areas at
the forefront of optical technologies. The proposed research has
potential applications to quantum-optical storage
and quantum computing for the next generation of computers.
The research effort is part of an ongoing collaboration between
the PI and Co-PI and involves more than a dozen coworkers that blend in
expertise in fields as diverse as dynamical systems, nonlinear optics,
condensed matter, materials science and scientific computing. Specially
attractive is the prospect that our results will be partially driven and
could be relevant to current experimental research conducted in BEC
experiments. This highly inter-disciplinary research program will also
involve a major educational component through the direct involvement of
graduate research assistants and postdoctoral fellows.